Analog Neuronal Networks for an Integrated Vision System

This effort deals with the use of concepts borrowed form recent developments in modelling of brain function. By issuing circuit elements with specified characteristics and interconnecting them in a dense manner (many elements - many interconnections among them) one is able to perform calculations in a parallel manner; such calculations being distributed throughout the interconnected elements. The properties of such circuits make them advantageous for such functions as pattern and motion recognition, generalization, and generally many calculational efforts which are difficult with conventional computers. Although the model can best be a primitive and crude representation of the complexities of biological neural systems, the concepts and approaches which have resulted from it have stimulated new and different approaches to many engineering problems.